Interactive Digital Video Capable Computer Laboratory for Undergraduate Physics Courses

This project introduces microcomputers into the elementary physics and intermediate optics labs at the institute. Interactive sessions using digital movie analysis, sound input and output, and the production of moving graphs are being used to teach fundamental concepts in mechanics, wave motion, and optics in a way impossible using traditional methods of instruction. The main objective of the project is to give undergraduate students a greater conceptual understanding of these basic principles of physics. Aside from the planned interactive sessions, the computers are being used throughout the academic year for routine data analysis and plotting. A shift in emphasis from greater topical coverage to a more in-depth, exploration-based treatment accompanies the introduction of computers into the curriculum. Unique aspects of the project include the incorporation of digitized video clips made during the laboratory session, and the use of the high-end, fully scriptable data analysis and graphing program Igor Pro for other interactive sessions.